U.S.-France Cooperative Research: Spectroscopy & Dynamics of Thermal Energy Relaxation Processes at Interfaces

9815824
Borguet

This three-year award for US-France cooperative research in chemistry adds an international dimension to an NSF career award. It involves Eric Borguet of the University of Pittsburgh and Eric Freysz of the Centre de Physique Moleculaire Optique et Hertzienne at the Universite de Bordeaux. They will study the impact of thermal energy on chemical and physical processes at the interfaces. A special probe, the Infrared Second Harmonic Generation, will be developed to study vibrational states and various aqueous interfaces, including electrochemical interfaces. The US investigator brings to this collaboration expertise in solid-liquid interface. This is complemented by French expertise in monolayer films. The project also takes advantage of complementary instruments available at the US and French labs. This collaboration will further understanding of the influence of thermal energy on interface processes, including adsorption, diffusion, chemical reactions, desorption, friction and lubrication.